Why is Music Music? An IMAX/OMNIMAX Film about the Science of Music and Sound

Shedd Productions, Inc. will produce a 38 minute 70 mm IMAX/OMNIMAX film which uses multicultural music to stimulate audiences' interest in the physics, physiology, math and technology of music and sound. The film will be a musical science investigation of what music is, why we respond to it, and what it means in the lives and diverse cultures of people around the world. By exploring together music's scientific structure and its variety of human interpretations, WHY IS MUSIC MUSIC? will show the dynamic relationships between science, technology, art, and culture. Hands-on science materials will be developed for general audiences and middle school classrooms to encourage in-depth exploration of the science and math concepts presented in the film. Model teacher training workshops for middle school music and science teachers will be held with the opening of the film in each venue to increase teachers' effectiveness with the hands-on materials. To enhance the educational effectiveness of future large-format films, comprehensive evaluations of WHY IS MUSIC MUSIC? and the accompanying classroom curriculum will be made available. This film will be distributed through the national and international network of science centers that house IMAX/OMNIMAX theaters, and may be seen by approximately 14 million viewers during the first five years.